Data- and Analytics Driven Fault-tolerance and Resiliency Strategies for Peta-Scale Systems

Project Summary:
This proposal aims at improving system level fault tolerance for high end computing systems by exploring the use of system monitoring data based models in "(1) a methodology for making informed decisions as to which parts of the system need to be fortified, at what time, and to what extent, and? building ?(2) a framework to reconfigure the system to meet user-specified resiliency requirements."